Planning: IUSE/PFE:RED Planning: Integrating Applied and Analytical Engineering Pathways in the Middle Two Years of a Merged Engineering Department

Polymers—the plastics, rubbers, fibers, and advanced composite materials found in medical devices, food packaging, electric vehicles, aircraft, and clean-water systems— shape modern life in ways most people rarely notice. Educating future polymer engineers who understand both the science of polymer materials and the practical realities of using these materials is urgent to continue staffing and advancing this field. This RED Track 1 planning project at Penn State Behrend will develop an evidence-based plan to improve how future polymer engineers are educated in a department created by merging two different undergraduate pathways: one rooted in hands-on engineering technology and manufacturing practice, and one rooted in analytical engineering science and polymer fundamentals. The challenge is especially important in the middle two years of college, when students often decide whether engineering is truly for them and whether their education connects to a meaningful future. In this department, student persistence has declined during the sophomore-to-junior transition, middle year courses have become points of student loss, and first-generation students face an additional retention gap. At the same time, employers in the regional manufacturing economy continue to need engineers who can connect materials science, manufacturing, and data-informed decision-making. This project will focus on a problem that cannot be solved by revising a single course: students may be receiving mixed messages about what counts as engineering knowledge, what success looks like, and how different kinds of preparation lead to real careers. By identifying those disconnects and building a shared plan for change, the project will support the goals of the NSF Revolutionizing Engineering Departments program. The careful examination of this merger will produce lessons and planning tools that other teaching-intensive engineering programs can use to connect theory and practice without sacrificing the strengths of either.

This project will investigate how a merged polymer engineering department can better align curriculum, faculty expectations, career messaging, and governance so that students can develop a stronger sense of identity and purpose during the middle two years. The study will be organized around a provisional Epistemic Integration Framework, a working hypothesis that students, faculty, and departmental systems may be sending inconsistent signals about rigor, legitimacy, and professional competence across the applied and analytical pathways. The project will ask how these signals differ across the two pathways, how they shape students' engineering identity and persistence in the middle two years, and what departmental structures enable or constrain their alignment. The project will pursue four goals: establishing a baseline of middle-two-year student progression and gateway- course performance; identifying mechanisms that shape professional formation and persistence; mapping governance and decision-making structures that may support or constrain change; and synthesizing the findings into a theory of change and a future implementation blueprint. Methods will include institutional data analysis, review of advising and curricular materials, student surveys, focus groups, faculty interviews, stakeholder input from alumni and industry partners, and structured faculty work sessions. The team will bring together expertise in polymer engineering, engineering education, educational psychology, institutional research, and organizational change, and will work with a current RED awardee as advisor. Expected outcomes will include a defensible baseline dataset, a refined framework for interpreting the merged departmental context, a governance map, readiness indicators, a transformation blueprint, and transferable planning tools such as identity assessment protocols and integration-planning templates. These outcomes will help the department decide whether and how to pursue a future RED implementation proposal, while also offering a useful model for other departments facing similar merger and integration challenges.